Multimedia Courseware on Computing and Human Values: A Pilot-part 2

This award continues the development and testing of interactive multimedia courseware modules on social, ethical, and professional issues that arise from computing technology. Multimedia `HyperCard stacks` combine video clips, sound bites, graphics and text. The three modules under development focus on the history of computer ethics, issues of professional responsibility, and issues of access and equity for persons with disabilities. The modules explore important concepts from the perspectives of disciplines engaged in study of these issues and include scenarios that add interest and reality to the concepts. Glossaries, bibliographies, and related articles add to the utility of the modules for teaching and research purposes. Teachers and students are testing the modules in classrooms and independent study settings. This grant provides funds to enrich and continue to test the first module, and to develop and test the second and third modules. The developers will continue to distribute the modules at cost to universities and scholars requesting it; to demonstrate them at national conferences and workshops; and to write articles describing the development of the modules and their contents. The stacks will serve as protoypes for high quality, cost effective, state-of-the-art curriculum materials on computing and human values.